Molecular Biology and Function of Carrier Proteins Symposium, September 1992, Woods Hole, Massachusetts

An International Symposium on Molecular Biology and Function of Carrier Proteins will be held in September 1992 at the Marine Biological Laboratory in Woods Hole, Massachusetts, under auspices of the Society of General Physiologists. The Symposium will focus on the molecular biology and structure- function relationships of membrane carriers, namely uniporters, symporters and antiporters, contrasting their modes of operation with those of channels and pumps. The overall aim of the Symposium is to integrate the physiological, biochemical and genetic approaches to the study of this class of membrane transport proteins, and to provide a focus for discussion of emerging strategies to determine how carrier proteins actually work. Twenty two lectures will be distributed in five sessions: 1) Structure and Dynamics of Membrane Proteins, 2) Families and Superfamilies of Transport Proteins, 3) MDR, CFTR, and Related Proteins, 4) Coupled Ion Exchangers and 5) Sodium-Coupled Cotransporters. There will also be two poster sessions for contributed papers and one session (New Ideas, New Faces) of talks by young investigators. %%% Carrier mediated transport contributes to cell nutrition, regulation of the ionic composition of the intracellular milieu, cell volume regulation, cell growth, and many other cell functions. This conference should contribute to the understanding of this ubiquitous process.